Polarimetric Emission Pyrometer for Temperature Measurement

During the first phase of this NSF sponsored Small Business Innovation Research project, Intersonics Inc. demonstrated the feasibility of employing a polarimetric method to measure precisely the spectral emissivity and optical properties of reflecting and partially specular surfaces. The measured emissivity was used to correct radiometric data obtained from a conventional pyrometer resulting in a non-contact true surface temperature determination of radiating bodies. The phase II research to be undertaken, will further asses the validity of the approach on different materials and different surfaces. Two independent methods will be employed to determine the true emissivity, and the results of the two approaches compared. This will provide an objective assessment of the true potential of the instrument, and the limits of it's accuracy to non-contact high temperature measurements of smooth as well as rough and film covered surfaces. Phase II experiments will include: (i) optical properties of: smooth solid and liquid metal surfaces at high temperatures; rough surfaces with varying roughness: materials with single and multi-layer dielectric films; (ii) dielectric function and spectral emissivities of incandescent surfaces using their self emission at non-normal angles; and (iii) spectral emissivities of materials of commercial interest. It is expected that this project will result in the development of an instrument which will have large demand in order to achieve process temperature control in numerous manufacturing operations.//